SBIR Phase I: Pilot-Scale Production of Stereoblock Polypropylene (sbPP) Thermoplastic Elastomers

This Small Business Innovation Research Phase I project seeks to demonstrate successful pilot‐scale production of stereoblock polypropene (sbPP) thermoplastic elastomers that can be produced, in programmed fashion, over an unlimited range of different fundamental forms by virtue of the ability to exert external control over the relative rates of reversible processes that are competitive with the rate of propagation. The research effort will involve investigation into the rate of these processes in order to develop a commercially viable procedure for the production of sbPP materials. The anticipated result is that commercially relevant volumes (> 1 kiloton)of sbPP thermoplastic elastomers can be produced with tailored physical properties as technologically viable replacements for existing commercial materials.

The broader impact/commercial potential of this project is that the large-­‐scale (>1 kiloton) production of sbPP thermoplastic elastomers as technological replacements for existing commercial materials will serve to capitalize on the increased availability of inexpensive propylene monomer that is the product of a recent shift by the petrochemical industry from crude oil to abundant North American natural gas. This shift has contributed significantly to increased cost volatility and global shortages of crude oil derived higher carbon-­numbered monomers that have been historically utilized for the commercial production of thermoplastic elastomers. Successful realization of the stated goals of this project will serve to deliver, with high chemical efficiency, a variety of different grades of high purity sbPP materials with tailored properties that can be transformational for the adhesives, film-packaging and medical markets. The procedures developed during this project will also facilitate future commercial production of a wider range of propylene based polymers utilizing the same catalyst technology. Society will further benefit from the introduction of a more environmentally benign andsustainable chemical technology that provides an alternative to current commercial thermoplastic elastomers.